Using Technology to Support Preschool Teachers' Professional Development

This research project consists of the development and testing of technologically enriched Language Environment Enrichment Program (TLEEP) used by early childhood teachers, supervisors, and families to improve literacy learning for young children nationwide. The technology enrichment will include interactive television (ITV) and web-based instruction.

The specific activities include:

Broadcast instructional ITV from Massachusetts to teachers and supervisors in New England, Maryland, and North Carolina for interactive professional development

Electronic meeting places for teachers and supervisors

The development of a sophisticated web site for parents to help improve the literacy learning of their children that can be accessed from school and home

An assessment of the affect that the above projects have on learning

Results of the project will be an assessment of what works and what does not and materials for replicating the successful aspects of the project nationwide.